US-India Planning Visit: Informal Sector Saving Behavior in India: Macro, Meso and Micro Level Analyses

9912020
Kantor

This award supports a planning visit for Paula Kantor, University of North Carolina to travel to India for three weeks. PI Kantor and Indian collaborator, Jeemol Unni, Gujarat Institute of Development Research, Ahmedabad will develop the sampling framework and discuss preliminary aspects of their study on Savings and Capital Formation in the Informal Sector in India. The Gujarat Institute is engaged in a series of research studies on India's informal sector which accounts for 80% of households and plays an important role in economic development.